Direct Reading, Quantitative Biosensors for ATP-Dependent Processes

proposal# 9413561 PI - Scheer The STTR is an outgrowth of two different R&D efforts leading to two product lines originally targeted to science education: Bioluminescence and the Labless Lab DB1 TM. These two unique and very different technologies can be combined to produce what on might call analytical chemistry without instruments. The basic idea is to build the entire instrument into the sampling device. Readout and detection utilizes light produced by bioluminescence. Specificity is provided by the use of enzymes. In this project the focus is on direct analysis of ATP using firefly luciferase coupled with others enzyme-mediated biochemical processes which either produce or consume ATP. The sensors utilize stable luciferase/luciferin films coupled to a capillarity- based sample distribution system. The result will be specific, quantitative, rapid, direct reading, inexpensive and disposable analytical devices.